Cortical Dynamics of Active Memory

9308905 Fuster When one wants to remember a piece of information like a telephone number for 20 seconds or so, one uses a memory process called active or working memory. This working memory resembles a mental scratchpad. When the information has been used to dial the phone, the scratchpad is erased and the information is gone. If the number was dialed incorrectly, it has to be looked up again because no trace remains. Thus this memory process differs from that used in long term memory where the trace remains permanently. Neurons in the cerebral cortex fire actively during the interval that the information is "kept in mind." With this NSF grant, Dr. Fuster a pioneer in the study of biological memory, will use multielectrode arrays to record from active memory cells and correlate the activity of neighboring cells when memories are being kept in mind and when they are erased. He will compare these correlations to those simulated by an artificial neural network, in order to elucidate the cortical architecture and connectivity that is necessary to provide such a memory capability. The results will improve our understanding of biological memory and our ability to design artificial circuits that remember and adapt.***